Conference: Promoting Informal Science Education and Cooperation among NSF Centers for Chemical Innovation

This award supports a conference for staff of the NSF-funded Centers for Chemical Innovation. This conference was initiated by CCI center staff to maximize the impact that the individual centers have in terms of research, innovation, education, public outreach and broadening participation of underrepresented groups. The meeting will take place February 27-29, 2012, in Anaheim CA.